NSF Travel Grant Support for ACM Conference on Security and Privacy in Wireless and Mobile Networks 2020 (ACM WiSec)

This proposal supports student travel to attend the 2020 ACM Conference on Security and Privacy in Wireless and Mobile Networks (ACM WiSec) to be held in Linz, Austria from July 8-10, 2020. The ACM WiSec conference is a leading venue for quick and wide dissemination of cutting-edge research results in on the security and privacy of wireless communications and mobile networks. This travel grant enables career development and learning opportunities for US-based and/or US citizen graduate students. Attending conferences is an important component of graduate school education for our society's future computer security researchers. Students have the opportunity to discuss leading edge research with world-class computer security researchers, and establish networks, connections, and mentoring relationships that will serve them well during their research careers.

This grant provides travel support to encourage participation in the 2020 ACM Conference on Security and Privacy in Wireless and Mobile Networks by students who would normally find it difficult to attend. Criteria for selection include evidence of a serious interest in the field, as demonstrated by research output, coursework and/or project experience. Organizers encourage participation of women and students from other under-represented groups.